Mechatronic Design Course and Japan Site Visits

Walsh 9722870 This award will support five undergraduate engineering students and two faculty advisors to travel to Japan to participate in the International Robot Grand Prix hosted by the Tokyo Institute of Technology and to visit Japanese university, government and corporate laboratories which conduct research on robotics. Dr. Gregory Walsh of the Department of Mechanical Engineering, University of Maryland, is the principal investigator for this project. He organized and taught a senior level mechatronic design course in which students designed and constructed an autonomous mobile robot that will be entered in the Grand Prix. Robotics, which is becoming an increasingly important generic technology, is an area in which the Japanese excel. This project will enable a group of highly motivated U.S. engineering students to have focused technical interactions with Japanese students and researchers working in this important area. It is expected that exposure to the Japanese laboratories, together with the interaction and exchange of ideas with their Japanese counterparts, will enable the American participants to initiate beneficial collaborative research activities. ***